Encouraging Diversity through Computer Science and Engineering Technology Scholarships

Forty scholarships are provided to full- time, low- income, academically talented students, with special consideration given to minority and women students, in support of the following goals: 1) improved education for students in the computer science and engineering technology programs; 2) increased retention of students in those areas to degree achievement; 3) improved professional development and employment or further higher education placement of participating students; and 4) strengthened partnerships between institutions of higher education and related employment sectors. In addition to providing financial assistance, this CSEMS project provides a solid student support infrastructure that includes innovative multidisciplinary sessions, peer tutoring, effective networks with local businesses and industries, and operative articulation agreements with four- year institutions. CSEMS scholars complete academic testing to determine readiness for academic mathematics and science courses prior to enrolling in these courses. Appropriate developmental education is provided for those students who need additional background before entering science and technology courses. The CSEMS program provides professional development opportunities for students to increase student confidence and readiness for the workforce.